Studies of Photoelectrochemical Phenomena at Semiconductor- electrolyte Interfaces by in situ FTIR Spectroscopy

This award in the Research Planning Grant for women program is made by the Chemistry Division to Dr. Lily M. Ng of the Chemistry Department, Cleveland State University. Chemical phenomena on semiconductor-electrolyte interfaces will be studied using in situ Fourier transform infrared reflection - attenuated total reflection (FTIR-ATR) spectroscopy. During the planning period, adsorption of carbon monoxide, carbon dioxide, acetate, ammonium, acetonitrile, methanol and thiourea on the surfaces of silicon electrodes, Ni or Pt modified electrodes, and CdTe electrodes will be investigated during photovoltaic and photoassisted catalytic experiments. This project is relevant to the development of more efficient photocells.